Materials Research Science and Engineering Center: The Mesoscale Interface Mapping Project

0079996
Rohrer

The Materials Research Science and Engineering Center (MRSEC) at Carnegie Mellon University supports an interdisciplinary research program on grain boundary networks in polycrystals, called The Mesoscale Interface Mapping Project. The group research seeks to advance the understanding of grain boundary systems by developing and applying experimental and analytical techniques, including automated orientation imaging microscopy, to determine the structure, evolution and properties of grain boundaries in metals and ceramics. The Center also provides seed support for emerging research opportunities.

The Center supports well maintained shared experimental facilities that provide specialized instrumentation for the preparation and characterization of bulk materials and surfaces. Education and human resources development efforts include curriculum development collaborations with Pittsburgh area high schools, and a Collaborative to Integrate Research and Education with Florida A&M University that includes undergraduate curriculum development and joint research projects. The Center also has extensive research collaborations with industrial and government laboratories, and with other universities in the U.S. and abroad.

Participants in the Center currently include 10 senior investigators, 1 postdoctoral associates, 10 graduate students, 5 undergraduates and 2 technicians and other support personnel. Professor Gregory Rohrer directs the MRSEC.